Model Mathematics Program for Elementary School Teachers

The University of Wyoming project is to develop and test a model for improving the mathematics education of preservice teachers. The model project will develop a program based upon the research-documented teaching strategies of the learning cycle and the use of cooperative groups. The content decisions will be guided by the NCTM Curriculum and Evaluation Standards for School Mathematics. The intent of the program is to educate teachers for the elementary schools that will be able to implement the NCTM Standards into their elementary school classrooms. This includes attention to the content to be taught and to the restructuring of the classroom environment in such a way that students will be able to construct deeper understanding of the mathematics studied. One of the major goals of the project is that the graduates understand many connections between the content of mathematics and science as well as the related pedagogies. The students will have a content/methods/practicum/student teaching sequence which will involve experienced teachers that have been educated to be mentors in mathematics and science. The science and mathematics faculty is working with the education faculty and public school teachers and principals to develop, test, revise, and institutionalize the program. Communication, problem solving, reasoning, searching for patterns and valuing mathematics will be overall themes for the mathematics course development. The content selected will be organized into activities and problems that will allow the development of these ways of thinking and reasoning in mathematics. New content emphases will be included in the courses, for example, decision making under uncertainty which will use many science contexts for investigation. The learning cycle model of teaching has been developed in science education. However, it is consistent with constructivist views of learning. The phases that are emphasized in the learning cycle are 1) motivating the study (introduction), 2) exploration, 3) concept development, 4) application, 5) and problem extension. The students in this project will meet the learning cycle in their science courses as well as their mathematics courses. This consistency of language and purpose will help build coherence in the way these preservice teachers think of teaching both mathematics and science. The learning cycle approach will be enhanced by the use of group work in college mathematics courses. The University cost sharing is 78% of the amount contributed by NSF.